Engineered Zeolites and Their Use in Continuous Regioselective Chlorination

This is an investigation of zeolite (aluminosilicate) crystals with oliophilic cores and oliophobic shells and the use of such materials to promote terminal photochemical chlorination of higher hydrocarbons. Synthesis conditions and reactor designs are established to produce zeolites with surfaces high in aluminum and cores devoid of aluminum. Previous results show that such materials produce strong regioselectivity for the terminal methly group in photochlorination of long-chain hydrocarbons. The mechanism and scope of this effect is probed. A fluidized-bed chlorination system to exploit this phenomenon is being designed and built. This work suggests that a technology based on continuous regioselective photochlorination processes is feasible. This would make available new (or more efficient synthesis of old) moieties for surfactants, polymers, lubricants, textile finishes, flame retardants, and other materials.